Workshop on Economic Geography and Its Potential Contributions to Understanding Processes of Globalization & Social and Environmental Change, Wash., DC, Spring, 1997

Pennsylvania State U. The proposed activity is a workshop which focuses upon the topic of the future of economic geography and its potential contribution to understanding the processes of globalization and social and economic change. The workshop will bring together scholars from geography, economics and regional science to discuss the formulation of a new research agenda that builds upon the traditional strengths of this sub-discipline yet speaks to more contemporary concerns and views. In addition to the goals of research agenda development and bridging the `old` and `new` realms of economic geography, a distinct objective is to consider and discuss the matter of methodologies and the role of teaching in advancing this area of inquiry. The project will result in a conference report that will be broadly distributed to appropriate communities of scholars.